REU Site: Research Experience for Undergraduates in Spatio-Temporal Database Systems

Institution: University of New Orleans
Proposal Number: 0353959
PI: Mahdi Abdelguerfi
Title: REU Site: REU in Spatio-Temporal Database Systems

This project establishes an REU site at the University of New Orleans (UNO) focusing on research experiences for undergraduate students in spatio-temporal database systems (STDS). This REU site will provide research internships to undergraduates in a number of STDS applications, all of them involving modeling of dynamic information in space and time. The specific projects include work on a 3D spatio-temporal GIS at the University of New Orleans (UNO); a digital geospatial mapping and analysis system at the Digital Mapping, Charting, and Geodesy Analysis Program (DMAP) of the Naval Research Laboratory; and developing management tools for different off-the-shelf GIS suites at the Army Corps of Engineers-New Orleans District.

The site will support 10 students for a 10-week summer program of full-time research, and the students will continue their research projects throughout the academic year, meeting from time to time at UNO. In addition to the scientific research, the project will provide the interns with training and orientation for effective communication (presentation) skills; preparation of research papers; computer ethics; and graduate school admissions processes.